Support for Chairmanship of the Scientific Committee for theInternational Geosphere-Biosphere Programme (IGBP): A Study of Global Change

9812734
Moore
Dr. Berrien Moore will serve as Chair of the Scientific Committee
(SC) of the International Geosphere-Biosphere Programme (IGBP), an
interdisciplinary program for research on global change sponsored
by the International Council of Scientific Unions (ICSU). The IGBP
focuses on interactive biological and chemical Earth-system
processes, the changes that these processes are undergoing, and the
interaction between these processes and human activity. The IGBP
is organized around a series of "core projects" planned and
implemented on an integrated international basis with substantial
participation by U.S. scientists, primarily under the aegis of the
U.S. Global Change Research Program (USGCRP). The SC-IGBP provides
international oversight and coordination for the complex series of
IGBP core projects, as well as for related scientific support
activities, including a major scientific data and information
exchange system.